Studies in Dynamical Control

This project is concerned with dynamic strategies for the so called Model Generative Reasoning (MGR) architecture that will enable MGR application programs to cope with both data and knowledge limitations imposed by unstructured task environments with greater effectiveness, i.e., task environments in which problems are typically ill-posed, and data are typically sparse, noisy, and uncertain relevance.